Engineering Ethics Training Seminar

The 1970s saw the first sustained and systematic studies of engineering ethics in the U.S., the first efforts to encourage engineers to collaborate with scholars from the social sciences and humanitis in such studies, and the first efforts to educate engineering students about ethical issues. This project will break new ground by planning and developing an Engineering Ethics Training Seminar. Faculty from the humanities and engineering will develop a two-day seminar designed to introduce engineers to moral reasoning, moral theories and concepts, and alternative models of professional responsibility of engineers. The seminar will be tested with four groups of practicing engineers in Missouri. It will continue to be offered after the project period, and a plan for identifying and involving national societies in undertaking similar programs for their members will be developed. Project faculty will develop and distribute seminar materials to participants prior to the seminar. The first day will concentrate on moral theories and their application to case studies; the second day will discuss models of engineering responsibility and their application to a major case. Preseminar and seminar materials will be packaged and distributed to teachers and researchers in engineering ethics. This project provides a model for future efforts in ethics education for engineers. The investigators are extremely well qualified; institutional support and cost-sharing are excellent. Results are likely to be widely distributed and advance the field substantially. Support in the amount of $31,386 is recommended.